RUI: Asymptotics of Determinants of Perturbations of Convolution Operators

Abstract
Basor

The focus of this project is to investigate the asymptotics of
determinants of perturbations of convolution operators. Our goal will
be to extend the classical limit theorems to these operators, both for
scalar and matrix-valued symbols, and for both smooth and singular
symbols. For many of these operators, the constant term is the most
difficult piece of the asymptotic expansion to describe. For
matrix-valued symbols there are only a few cases where the constants
can be explicitly described. In particular, we will investigate the
asymptotics in the case of a perturbation of a Toeplitz determinant by
a Hankel operator with possibly different symbol. Other classes of
operators of interest are Wiener-Hopf plus Hankel operators and Bessel
operators. Classical operator methods will be used to study these
problems as well as newer developments. For example, using the
BorodinGeronimo-Geronimo-Case identity to bridge between smooth and
singular symbols has been highly successful.

There is increasing interest in finding asymptotic expansions of
determinants of convolution type operators because they have
connections to many problems in mathematical physics, including the
Ising model (a model of a two-dimensional (or very thin) magnets), the
classical dimer model, the entanglement problem in spin chain model,
random growth models, and to the general area of random matrix theory.
In these physical problems one is often interested in the complicated,
unpredictable behavior of the models. Often a quantity that describes
some statistical property of a system can be reformulated as a
determinant approximation problem. The physical systems give
predictions as to the right form of the approximation and show that
many of the answers should be quite universal. The universality is
especially important since it shows that many complicated systems and
models are actually quite similar. Hence the idea is not simply to
prove theorems and then find applications for the theorems, but to use
the ideas of mathematical physics to give predictions of the
mathematics and then conversely, to use the mathematics to tell us
something about physical systems.